REU: Research Experiences for Undergraduates

This is a Research Experiences for Undergraduates project. It provides research experiences for eight students at Cold Spring Harbor Laboratory. Students will participate in projects involving laboratory and field biology.